Mathematical Sciences: Problems in Quasiconformal Maps and Harmonic Analysis

This work will focus on mathematical problems arising in the theory of quasiconformal maps and harmonic analysis. Quasiconformal maps are smooth univalent transformations of planar (or higher dimensional) domains in which the distortion - called the dilatation - is controlled. Such maps occur as solutions of a partial differential equation called the Beltrami equation. One goal of the research will be to find new characterizations for quasiconformality in terms of oscillation functions, maximal functions and doubling measures. These are concepts taken from other parts of mathematical analysis in which certain analytic hypotheses are usually assumed. Part of this effort will be to consider how the geometry of quasiconformal maps can be used to reduce the requirements of analyticity. A second line of investigation will continue research on the problem of describing domains which can be the image of a disk under a quasiconformal transformation. Such domains, quasidisks, cannot be arbitrary. Their boundaries cannot have cusps, for instance. Insight into the structure of quasidisks, will provide important information into the nature of any image domain under quasiconformal mapping.